REU site at the Center for Reproduction of Endangered Species

This award supports summer research by undergraduates in the research/conservation branch of the San Diego Zoo. Students pursue research related to ongoing faculty research programs concerned with behavior, comparative and reproductive physiology, endocrinology, genetics and other aspects of the biology of endangered species. Students also participate in a biweekly seminar during the 12-week program.